U.S.-Hungary Research on Neurochemical Interactions in the Neostriatum of the Brain

INT 9904207
Zigmond

This U.S.-Hungary project between Michael Zigmond of the University of Pittsburgh and Laszlo Harsing of the Institute for Drug Research, Budapest, will examine neurotransmitter interactions in the neostriatum of the brain. The researchers intend to conduct in vivo and in vitro research which investigates neocortical glutamate inputs and outputs to midbrain dopamine neurons from GABAergic interneurons in the neostriatum. The researchers hypothesize that these interactions are reciprocal and occur with and without involvement of GABAergic projection neurons and interneurons. Their collaborative effort builds upon established Pittsburgh expertise in neurotransmitter measurement and release, a Budapest-developed special superfusion chamber, and Hungarian experience with a unique method for stimulating a single afferent to the striatum in vitro. Findings are expected to improve our basic understanding of the neurochemistry of the striatum and specifically, the transmitter interactions within the basal ganglia, an essential area in the control of sensory and motor information.

This project in neuroendocrinology fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Central Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.